Preparing Students with Learning Disabilities for Careers in Math and Science by Achieving Curriculum Standards

Objectives: The objectives for this project include reducing the achievement gap between the
performance of students with learning disabilities and their non-disabled peers in math;
enhancing the math preparation of individuals with LD to enter postsecondary institutions to
pursue programs and degrees in math, science, engineering, and technology; and the national
dissemination of instructional resources in the form of lessons and online tutorials aligned with
curriculum standards that have been validated to improve the achievement of students with LD .
This proposal builds from a major internally funded project identified as the Blending
Assessment with Instruction Program (BAIP) that is comprised of two validated interventions in
the form of lessons for teachers to employ in their instruction and online tutorials for
independent use by students with LD. Both interventions are aligned with curriculum standards
in math. The research initiative is designed to investigate the effects of the lessons and the
tutorials on the achievement of students with LD in math.
Significance and Intellectual Merit of Research: National Center for Educational Outcomes
reported in 2004 that not only were students with LD performing below all students across the
country, but also that the gap actually grew significantly larger as students got older (Thurlow &
Wiley, 2004). Research has found that students with LD typically function two to four grades
below expectancy across the mathematics curriculum (Parmar & Cawley, 1997). Many students
with LD perform poorly on assessments that are tied to state standards (Thurlow, Albus,
Spicuzza, & Thompson, 1998). Thurlow et al determined that only 34% of students with LD
passed a state test on basic math skills, versus 83% of their non-disabled peers. This is of
serious concern given that students with LD are held to increasingly higher standards and will
need higher-level math and reasoning skills to meet the demands of high school and beyond. In
less than 20 years, one in every four jobs will require technical skills (Tarlin, 1997, as cited in
Jarrett, 1998), and many careers require a strong basis in math. If students do not experience a
standards-based curriculum at an early age, they will be disadvantaged when being assessed
via a standards-based assessment as required by NCLB. To focus only on postsecondary
interventions to increase the presence of persons with LD in math, science and technology
careers fails to recognize what research demonstrates as the contributor to the underrepresentation
of persons with LD in the math, science and technology fields.
Research Strategy: We propose to research the effects of BAIP in aligning local curricula with
national curriculum standards and statewide assessments as a model for improving the
performance of students with LD. The lessons and tutorials are developed for grades 3, 4, 5, 6,
7, 8, and 10 in compliance with NCLB. Two distinct empirical approaches are planned. First,
lesson tests will be directly tied to content. These tests will be piloted to assure their validity and
reliability. Once quality tests are available, they will be administered prior to and following
lesson use with targeted students. In concurrence with this "experimental group" testing, we will
pre and post test other comparable students with the same measures. As we will not be able to
control for group equivalence due to the absence of randomization to intervention, and also
considering that the pre and post test measures will not be equivalent, analysis of covariance
procedures will be used to control "pre-lesson" instructional group differences. This method will
be used within schools and as numbers of participants increase will carry out more robust
empirical studies relying on hierarchical linear modeling. Thus in six months we will quasiexperimentally
research the impact on learning of the lessons. Finally, student item score
results will be evaluated descriptively to guide us regarding needed lesson changes.
Comparisons will be made across students with LD who experience (a) the lessons taught by
teachers, (b) tutorials, (c) lessons and (d) tutorials with disability and non-disabled peers.
Broader Implications of Proposed Research: The vast majority of students with LD receive
their math instruction in the general education classroom. Thus, the project has the potential to
benefit all teachers and, ultimately, all students.